Nucleon Structure and Nuclear Force Studies

This award is to support the research activities of two professors,
their graduate students and a Senior Research Associate at Kent State
University in the area of experimental medium-energy nuclear physics.
The general objectives are the study of the structure of the nucleon
(neutron or proton) and the nature of the nuclear force. This group is
involved in experiments being performed, or to be performed at the
Jefferson National Accelerator Facility (Jlab) in Virginia and at the
Relativistic Heavy-Ion Collider (RHIC) on Long Island, New York. An
experiment is in progress at Jlab to determine the charge distribution
inside the neutron. The neutron, while neutral overall, is known to
consist of objects with both positive and negative charges. These
objects are called "quarks". The quarks are held together by the
exchange of particles called "gluons". Exactly how the quarks combine,
move, and interact inside the neutron is not known. A precise
measurement of the charge distribution, called the Electric Form Factor,
will provide one of the most sensitive tests available of various models
of the neutron structure. These measurements are only recently possible
and require the electron beam characteristics now available at Jlab and
involve the use of a large-volume neutron polarimeter developed by this
group in experiments performed during the last decade at other
accelerator facilities. The development, installation, calibration, and
operation of the polarimeter represents the unique contribution of this
group to this important experiment. This group plans also to perform
another experiment at Jlab to study short-range correlation between
nucleons inside nuclei. Such short-range correlations are known to
exist, but the exact nature and strength of such correlations are only
poorly determined. This group will bring its expertise with neutron
detectors to help study such correlations involving neutrons.

This group has recently joined an effort planned to study interactions
between colliding beams of polarized protons using the "STAR" detector
at RHIC (STAR stands for Solenoidal Tracker at RHIC). The object of
this study is to determine the exact origin of the intrinsic angular
momentum, or spin, of the proton. The spin, like the charge
distribution, arises from the existence, interactions and movements of
the constituents of the proton, generally believed to be the quarks and
gluons. To date, only the contributions from the quarks has been
determined; this project offers the possibility of determining the
contribution to the spin of the proton due to gluons. In order to
measure these contributions, it is necessary to observe hadronic jets
produced at relatively small angles in the collisions. This group,
together with a collaboration of other researchers from Indiana
University, Argonne National Laboratory, and others, will construct a
new "end-cap calorimeter" to be installed at one end of the present STAR
detector at RHIC. It will be this group's responsibility to provide
characterizations and calibrations of the multi-anode photomultiplier
tubes used for particle detection in this new calorimeter.